Connection to the Internet

The Upper Bucks Technical School, located in Perkasie, PA is provides both degree and certificate programs to a student body of about 800. This grant will help fund Internet access for the institution by supporting the acquisition of a leased line, connection equipment, installation services and service provider fees. The students and faculty of the Upper Bucks Technical School need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.